NSF Minority Graduate Student Travel Award

This action funds a Minority Graduate Student Travel Award. These awards permit minority graduate students who plan to apply for an NSF Minority Postdoctoral Research Fellowship to make visits to prospective sponsoring scientists prior to submitting a fellowship application.

Ms. Uriarte will visit laboratories and field stations at the University of Washington early in calendar year 2001. Her research interests are in environmental biology and the physiology of invasive plant species.